MRI- Consortium: Acquisition of Cryogen-free Cryocooler-based Physical Property Measurement System to Support Transformative Device and Materials Research in the Rio Grande Valley

1126410
Martirosyan

The objective of this grant application is to acquire a cutting-edge commercial multi-functional instrument Cryogen-free Cryocooler-based Physical Property Measurement System (PPMS EverCool-II, Quantum Design, USA) to support fundamental and interdisciplinary research projects and the applied physics education program in the Rio Grande Valley, South Texas region. The equipment will be installed at the University of Texas at Brownsville and will be used as a shared characterization facility. This instrument is designed to measure a variety of materials properties including magnetic, transport, and thermal under different temperatures (1.9 - 1000 K), magnetic fields (up to 9 T) and environments (from atmospheric pressure to high vacuum). The system is cryogen-free and no costly liquid cryogens are required. The attractive feature of the PPMS is a cryocooler to achieve cryogenic temperatures. The PPMS EverCool-II is a highly automated instrument. It can perform unattended measurements after the user has installed a sample and configured the measurement. This acquisition will enhance the existing research and educational infrastructure and will provide the state-of-the-art measurement system to a broad range of users in State of Texas, thereby elevating advanced materials research and educational programs in the Rio Grande Valley to a globally competitive level.